Mathematical Sciences Computing Research Environments

The Department of Mathematics at Polytechnic University of New York will purchase workstations with the necessary accessories, which will be dedicated to the support of research in the mathematical sciences. The following projects are planned: 1. Computations in topology, 2. Numeric solutions for problems in mathematical physics, 3. Symbolic and numeric computations in Riemannian geometry, 4. Intersection bodies, 5. Numeric solutions of Yang-Mills-Higgs fields,